Order and Disorder in Crystalline Polymers

The commercial usage of linear chain polymers has greatly outdistanced the theoretical understanding of their interactions and orientations. A program of research will be undertaken to study the conformation and crystal packing of helical polymers. The goal is to determine the minimum energy states resulting from intra- and inter-chain interactions, and to study the effects of disorder about these ground states. This grant is made under the Research Opportunities for Women Program.